Scholarship Program for Improving Retention of Penn State Change of Location Students

This project aims to understand and remediate factors that reduce the retention and success of science, technology, engineering and mathematics (STEM) students attempting to complete a 2+2 plan at Pennsylvania State University (PSU). The goal is to bring the retention and graduation rates of 2+2 STEM PSU students from other campuses at least into parity with students that begin and remain at the University Park campus of PSU. This is accomplished by implementing a multifaceted advising, career counseling, and mentoring program, combined with $4,000 scholarships that will provide 2+2 students with the support they need to succeed in math and science majors.

The program helps to weld a cadre of students into a community that allows a methodical investigation into the impact of each of the targeted interventions. This knowledge will be incorporated into a long-range plan for making successful strategies and interventions available for all Eberly College of Science students enrolled in the 2+2 plan, so that the project's potential impact reaches approximately one thousand students who will transfer to PSU University Park during the project period. This project is a model for retention efforts in STEM for students moving from community colleges to four-year institutions and the results will be shared broadly with the higher education community.